Structure and Dynamics of Social Networks and Other Networked Systems

Newman
0109086
The principal investigator and his colleagues study the
structure and function of real-world networked systems,
particularly but not exclusively social networks. An empirical
component is concerned with the discovery and analysis of the
structure of networks, including networks of collaboration
between scientists, networks of company directors, networks of
personal preferences, and networks of citations between academic
publications. Studied quantities include local observables such
as transitivity and degree distribution, and nonlocal ones such
as centrality and community structure. The investigator develops
models to aid in the understanding of the effects of network
structure. Of particular interest are random graph models of
networks, percolation models of network resilience, and models of
epidemics taking place on social networks. The investigator
develops new algorithms for extracting and visualizing network
structure, particularly the existence of communities in networks
and structural properties related to network resilience, such as
path counts and centrality measures.
A knowledge of the structure of networks of acquaintance is
crucial to the understanding of how information, such as news,
rumors, consumer trends, etc., spreads through society.
Similarly, networks of physical contact between people govern the
way in which diseases spread. A proper understanding of the
nature and progress of epidemics is impossible without good
network models. In this project the investigator determines what
the structure of the networks in question is, and also models the
effect of that structure on, among other things, the spread of
information and disease. As well as enhancing basic
understanding of these problems, the project points to ways in
which network structure or dynamics can be changed in order to
either improve network transmission (in the case of information)
or slow it down (in the case of epidemics). For disease
transmission, for instance, it may be able to suggest effective
targets for immunization or education campaigns to slow disease
spread. The new data resources and analysis techniques developed
can be used to study other problems in which network-structured
processes arise.